A Proposal for Implementing Calculus Reform in West Appalachia

Five private and five public colleges and universities located within or at the western boundary of appalachia and having an aggregate student body of over 60,000 are promoting the implementation of modern calculus curricula in their region by: (1) developing and achieving full implementation of calculus programs at their own institutions and (2) sharing the knowledge and experience gained through an extensive program of dissemination directed at both high schools and sister institutions. The availability, within the region, of a large, documented, widely disseminated sample of successful approaches and implementations is expected to motivate, encourage, and facilitate similar efforts at other regional colleges and universities. The latter, combined with programs to inform and involve high school teachers of calculus will contribute to the further extension of a revised calculus in the schools. In addition to workshops, consortium communication will be facilitated through an electronic network.